Reduced Self-Similar Description of Fully Developed Turbulence

Abstract N. Aubry CTS-9423304 CCUNY At high Reynolds numbers, the number of excited degrees of freedom or active modes in a flow exceeds the capacity of available computers so that many turbulent flows of industrial and geophysical importance cannot be computed. This work seeks to address theoretical and modeling issues in the fully develop, high Reynolds number regime of flow. This work is aimed at the prediction of the most appropriated modes to describe the turbulence (that is, the smallest number of modes needed among all possible representations). This is done by eliminating most modes and their energy spectra through mappings deduced from symmetry considerations. This can be viewed as an alternative to "subgrid scale modeling". The technique will be applied to a turbulent channel flow for which high resolution numerical data are available. The predicted representation of the flow will then be used for turbulence modeling.